Analytic and Monte Carlo Studies on Electromagnetic Interactions with Nonspherical Dense Media

Proposal Number: ECS-9615799 Principal Investigator: Jin Au Kong Title: Analytical and Monte Carlo Studies on Electromagnetic Interactions with Nonspherical Dense Media In this research, a basic theoretical and computational investigation of methods which are adequate for use in situations where nonspherical complexity is introduced in electromagnetic interactions with terrain-type scatterers (remote sensing) is proposed. This is a nontrivial outstanding problem. Almost all branches of remote sensing, terrain, atmospheric and ocean, will benefit from an effective formulation which includes this realistic effect. Remote sensing, as part of the general field of global resource assessment, is felt to be a strong area, which is vital to the United States.